The Implementation of Microcomputer Research Skills Across the Undergraduate Psychology Curriculum

The present project is designed to improve undergraduate psychology students' research skills by introducing microcomputer research skills in the psychology curriculum. The specific goal is to teach undergraduate students how to employ microcomputers to increase their understanding of human mental behavior and psychological research. The major instruments to achieve this goal are ten Macintosh microcomputers and the software necessary to examine and understand the complexities of human mental behavior. Students are taught how to use microcomputers to answer research questions, specifically for the experimental study of human learning and memory. This project integrates the psychology curriculum, enabling students to link the statistical analysis of large data bases, stimulus presentation and experimental design into the existing academic framework.